Theoretical Studies of Hadronic and Nuclear Dynamics

0140214
Myhrer

The main aim of the research is to investigate nuclear-hadronic
dynamics with a particular emphasis on its relation to quantum
chromodynamics (QCD), the fundamental dynamics of quarks and gluons. We
are particularly interested in the role of chiral symmetry, which is one
of the basic symmetries of QCD.

Chiral perturbation theory offers a systematic and practical framework
to translate the symmetries of QCD into those of hadrons, particles that
actually constitute nuclei. Our research makes extensive use
of this formalism. At the same time, for those phenomena which are at
present beyond the applicability of chiral perturbation theory, we
resort to models that preserve chiral symmetry and that can be applied
to complex nuclei. Specifically, we study:
(1) Consequences of nuclear chiral perturbation theory as applied to
few-nucleon systems;
(2) Muon capture on light nuclei and its relation to neutrino
interactions with light nuclei;
(3) Radiative corrections for the neutrino-deuteron cross sections,
corrections that will be of importance for next-generation high
precision solar neutrino data to be obtained at the Sudbury Neutrino
Observatory;
(4) Comparison of the sigma model and chiral perturbation theory; and
(5) Strangeness condensation in dense matter.